Collaborative Research; A Field Validated Model for Melt-water Infiltration and Runoff from the Greenland Ice Street

ABSTRACT
Harper
OPP-0612506
Pffeffer
OPP-0612351
Humphrey
OPP-0612374

Satellite observations suggest substantial year-to-year increases in surface melt extent of the Greenland Ice Sheet (GIS). Both the area and duration of snow melting in the percolation facies, a wide band of intermediate elevation that circumscribes the ice sheet, are increasing. The fate of the melt water, however, is unclear as in-situ observations in Greenland's percolation facies have been extremely limited. The ultimate hydrologic result of these changes is a significant change in meltwater production and runoff from GIS, however, the coupling between snow processes and runoff are poorly documented. In particular, the runoff limit, the altitude above which seasonal melt infiltrates, refreezes, and does not escape, lies within the higher part of the percolation facies, but its precise location is generally unknown, and the response of the runoff limit to warming is poorly understood. Current models for present and future contributions of GIS to sea level rise use a model which established rough bounds on the response of the "runoff limit" to secular increases in melt. This research will quantify melt water runoff processes and changes in near-surface firn densification in the percolation facies of GIS and will produce a new and highly improved model for runoff that is anchored in experimental observations. Experiments will be conducted at sites along a transect in the region of Crawford Point, extending from about 2025 m to 1500 m elevation. Specific objectives are twofold: 1) the Principal Investigators will determine km-scale melt water flow velocities and pathways which will serve as calibration for their runoff model; and 2). they will investigate change in near-surface densification rates and processes in records that span over 25 years. This work will increase our understanding and prediction capabilities of the fraction of meltwater which runs off the ice sheet, document change in important physical processes occurring on the ice sheet, and provide rare ground observations for comparison to satellite based measurements of surface melt. Each of these has important implications for interpretation of the ice sheet's surface elevation, mass balance, and flow dynamics and ultimately, global eustatic sea level.

Broader Impacts: The Principal Investigators are active teaching faculty engaged in undergraduate and graduate teaching, and graduate student mentoring. They will collectively teach over 90 credit hours of undergraduate and graduate courses. This research and related scientific issues will add pedagogical benefit to numerous courses. This project will lead to at least four graduate degrees. They regularly conduct outreach activities with k-12, the general public, and the oil and gas industry.